Collaborative Reasearch: BEST - A service proposal to examine impacts of sea-ice on the distribution of chlorophyll-a over the eastern Bering Sea shelf

Funds are provided for a service project to collect, quality control, analyze and distribute to all BEST investigators the core chlorophyll-a data. This project will support one person on each spring cruise. Data will be freely available on databases at PMEL, NODC, and the Alaska Ocean Observation System (AOOS). In addition to the service portion of this proposal, the PIs will use the biological data from this proposal combined with a) physical and chemical data collected on spring and summer BEST cruises b) data from a September NPCREP cruise c) data from moorings and from satellite-tracked drifters to address one hypothesis:
The marked difference between the more pelagic southern shelf and the more
benthic northern shelf is a result of the position of the sea-ice edge during the
transition from strong winter winds to milder summer conditions.